CAREER: Dexterous Biomimetic Micromanipulation Using Artificial Muscles: Modeling, Sensing, and Control

PROJECT SUMMARY
This CAREER proposal describes an integrated research and education program that will build a
foundation for achieving the PIs career goals: to deliver smaller and smarter systems by developing
novel modeling and control methodologies, and to train tomorrows control engineers with crossdisciplinary
perspectives. In particular, the proposed research aims to fully realize the potential of
Ionic Polymer-Metal Composites (IPMCs), informally known as artificial muscles, in manipulation of
delicate, microscale objects (e.g., capture and transport of single biological cells and assembly of 3D
MEMS structures), by developing modeling, sensing, and control strategies to address time-varying,
nonlinear behaviors of IPMCs in actuation and sensing. The research will have four core thrusts:
1. Development of a control-oriented model capturing essential dynamics and nonlinearities in
IPMCs, including both hysteresis and nonlinear feedback coupling from the bending curvature
of an IPMC actuator to its electrical behavior.
2. Investigation of two original sensing approaches for IPMCs: one exploiting IPMCs built-in
sensory capability using nonlinear compensation, the other utilizing the curvature-to-electrical
behavior coupling observed by the PIs group.
3. Development of control schemes targeting the major nonlinearities in IPMC actuators, including
adaptive inverse control methods for hysteretic, dynamical systems to accommodate possible
variation of IPMC behaviors.
4. Design and fabrication of a biomimetic micromanipulator with IPMCs functioning simultaneously
as structures, actuators, and sensors, and validation of the proposed modeling, sensing,
control methods through manipulation of microbeads and biological cells (in collaboration with
a biomedical engineer at Michigan State).
Intellectual Merit:
The proposed research will enable fast, precision control of IPMC actuators throughout their full
actuation ranges by identifying and accommodating major nonlinearities in the control design. The
developed sensing schemes can potentially eliminate the need for external sensors, resulting in smaller
systems. Theoretical and experimental investigation of scaling laws will help understand the capabilities
and limitations of micro IPMC actuators and sensors, and offer insight into design of active
dithering schemes to overcome adhesion, a critical problem in micromanipulation. The proposed
project will thus promote the development of compact, dexterous IPMC-based micromanipulation
systems while motivating formulations and solutions of new problems in modeling and control.
Broader Impacts:
The proposed research will provide an innovative approach to manipulation of biological cells and micro
devices, facilitating advances in biological studies, biotechnology, and microtechnology. Through
collaboration with Environmental Robots Inc., the developed control and sensing schemes will be
applied to a number of IPMC-based biomedical applications (e.g., implantable micropumps for drug
delivery), with potential impacts on health care. Integrating with the research program, the PI will
establish an interdisciplinary curriculum on Smart Materials and Systems including a senior design
program involving industrial partners (the PI has secured seed funding from SPIE) and a graduate
course Smart Sensors and Actuators in Micro and Nanosystems. As a faculty advisor to the undergraduate
research program hosted by the Diversity Programs Office at Michigan State, the PI
will involve women and minority students in developing biomimetic microrobots incorporating smart
sensors and actuators, and further use these microrobots as appealing, hands-on educational kits to
inspire the interest of K-12 students in science and engineering.